MRI: Acquisition of an X-ray Photoelectron Spectrometer (XPS) for Research and Education at VCU

The Department of Chemistry at Virginia Commonwealth University will acquire an x-ray photoelectron spectrometer (XPS) with an ion sputtering system and direct imaging capabilities with this award from the Major Research Instrumentation (MRI) program. The research to be undertaken will expand the understanding of nanoparticle and film surfaces with both materials and biomedical applications. The synthesis of new magnetic materials for MRI applications and the study of surface-catalyzed reactions are two areas of nanomaterial development that will be undertaken. The determination of the biocidal activity of polymer films, hybrid materials prepared via sol-gel methods, and thin film modification of plastic surfaces are complementary areas of film-related research that will be investigated.

An X-ray photoelectron spectrometer probes the surface composition and the oxidation state of chemical elements in materials. The imaging resolution will be approximately 0.1 micrometers. This allows researchers to correlate chemical and physical properties with chemical composition. Undergraduate and graduate students from Virginia Commonwealth University, Virginia State University and the University of Richmond will use the instrument in their research. Potential long-range impact consists of the possibility of developing new materials for drug delivery mechanisms, biosensors which are capable of real time detection of pathogens, and catalysts which can dramatically improve workplace atmospheres and employee health.